A Comprehensive Study of Direct Photon Production in Hadron Induced Collisions, U.S.-India Cooperative Research, Award in Indian Currency

Description: This project supports Dr. R. Shivpuri of the Physics Department at the University of Delhi, and a number of his graduate students, for collaborative research with a team of U.S. scientists working at Fermi Laboratory. The U.S. team includes Dr. John Peoples at Fermi Lab. and Dr. Paul Slattery at the Universsity of Rochester. The Indian scientists and graduate students will participate in a multi-institution experiment at Fermi Laboratory. The experiment E706 is designed to study interactions of protons, pions and kaons in a variety of targets, triggering on high transverse momentum (>5 GeV/C) electromagnetic showers. It is a second generation fixed target experiment using high energy beams (800 GeV protons from Fermilab Tevatron) and with a wide acceptance spectrometer, it is intended to reach approximately 10 GeV/C. A goal of the experiment is to obtain information on quark and gluon interactions in collisions of positive pions, negative pions and protons with nucleons. The Indian scientists participation includes building detectors, data acquisition and data analysis. Scope: This is a renewal of work currently under the leadership of Dr. Peoples at Fermilab, Dr. P. Slattery of the University of Rochester, and of Dr. R. Shivpuri of the University of Delhi. The collaboration is considered quite successful, and a number of joint publications have resulted. The project fits the U.S.- India Cooperative Science Program objectives.